Young Scholars Program -- Research in Hazardous Toxic Substance Management

The New Jersey Institute of Technology will initiate a three- week, commuter Young Scholars project in Environmental Waste Management for 30 students (15 entering grade 8; 15 entering grade 9). These students will be introduced to the current problems, available solutions and research involving the critical issues associated with substances management. The participating students will work with faculty of the NJIT Hazardous Substance Management Center on research projects related to this theme. Students will be instructed in the scientific method and the engineering science associated with hazardous substance management and motivated to pursue careers in science and engineering. The program will include classroom and laboratory activities, seminars and field trips.